Conference: Elevating Quantitative Reasoning as a Lever for Student Success

This IUSE workshop project from Transforming Post-Secondary Education in Mathematics (TPSE Math) and the University of Maryland, College Park aims to serve the national interest by looking to standardize and strengthen quantitative reasoning (QR) courses. Quantitative literacy and reasoning are key to developing students’ mathematical skills in ways that are highly relevant to their engagement in society. Currently, however, undergraduate QR courses offerings lack consistency and can vary greatly in goals, content covered, and even course names. This variability clouds the value of QR courses and can also hinder easy transfer of course credit between institutions.

The goals of this convening are to increase the consistency and legitimacy of QR courses. Meeting these goals will strengthen the quality and value of the courses and ensure that course content is modern and aligned with the needs of a quantitatively literate citizenry. Deliverables created through and after the workshop will include an evidence-based course framework, learning outcomes, a general QR curriculum, and a strategy for widespread adoption. Participants will include mathematics educators and representatives from professional societies and other nonprofits, publishers, and other stakeholders. Project dissemination will center on increasing adoption of the workshop-developed QR Course Framework across states, systems, and institutions.

The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.